U.S. Panel on Wind and Seismic Effects

9619412 Raufaste This award is for continued support for the U.S.-Japan Panel on wind and Seismic effects which was established in 1968. annual meetings a alternate between Japan and the U.S. the Panel develops technologies and strategies that advance engineering design and construction practices. The panel is composed of 19 Federal agencies that participate in 11 task committees. the task committees focus on specific issues, e.g., earthquake and natural hazard reduction. passive and active control systems, repair and retrofit of structures and wind and earthquake engineering of offshore and retrofit of structures task committee workshops and conferences are shared at the annual joint meeting and usually published as proceedings.